Interest Rates, Financial Markets and Economic Activity During the Great Depression

The proposed research will investigate the interaction between the financial sector and the real economy of the United States during the 1930s. The research will use data on the term structure of interest rates constructed in earlier work to examine the role of monetary and financial factors in the propagation of the Great Depression. The research can be divided into several related projects. The first explores the severe deflation of 1930-32 and provides evidence that the deflation was anticipated. This is followed by an analysis of the impact of anticipated deflation. The result is a new theory for the propagation of the Depression which states that anticipated deflation, caused by contractionary monetary policy, brought on both an investment collapse and a fall in consumption. This, in turn, caused bankruptcies and the collapse of the banking system. The second project studies the evolution of interest rates during the 1930s. Bond yields contain substantial information about both the functioning of financial markets and the state of the real economy. By analyzing movements in the term structure, one can make inferences about the causes of the length and depth of the Depression and differentiate among the various theories for its causes. The final project examines the market for U.S. Government securities during the 1930s. It will study both the methods of Treasury finance and issues related to the pricing of bonds and notes. Most of the current empirical work on the role of credit markets in exacerbating fluctuations in real activity has been conducted at the firm level and has focussed on the importance of credit constraints. The proposed research is distinctive in that it examines the role of credit at the macro level using a large new data set on the Great Depression. Resolution of still lingering debates over the nature and causes of the Great Depression has the potential for clarifying controversies on theory and policy in the present day.